US-South Africa Planning Visit in Astronomy

0125413
McGruder

This award supports a planning visit to South Africa in August 2001 for Professor Charles McGruder, Department of Physics and Astronomy, Western Kentucky University, Bowling Green, KY. Professor McGruder, who is the President of the National Society of Black Physicists, will meet with leading South African scientists to formulate joint research projects between graduate students in the United States and South Africa. He will also meet with Patricia Whitelock, Deputy Director of the South African Astronomical Observatory, to discuss a planned graduate course in basic space science to attract students from all over Africa.